Separation of Complex Materials by Field-Flow Fractionation

This research, supported by the Analytical and Surface Chemistry Program in the Chemistry Division, will seek new ways to separate and characterize large molecules and small particulates using Field Flow Fractionation, a technique pioneered by the principal investigator. Crossed flows of solvents or crossed force fields (fluid flow vs. temperature, fluid flow vs. electric field, or fluid flow vs. gravity) are employed to separate molecules and particulates based on differences in their density, electrical mobility, and diameter. Applications include both preparation of mono-dispersed particulates and analysis of mixtures. %%% This research, supported by the Analytical and Surface Chemistry Program in the Chemistry Division, renews support of the principal investigator's work in field flow fractionation (FFF) for separation and analysis of large molecules and particulates. FFF separates molecules, particulates, or cells based on the competitive interaction of a fluid flow adn a perpendicular force field (flow of a second fluid, gravity, heat, or electric field) with the mixture to be separated. This contrasts with more common separation methods that depend on the chemical interaction of the substances to be separated with a stationary, selective phase. The current proposal focuses on separations of polymers and emulsions, based on thermal gradients.